Lightning Observations at Orlando International Airport

The objective of this research is the measurement of lightning channels using a radio frequency interferometer during a coordinated field experiment deployed near Orlando International Airport. This interferometer, capable of measuring the horizontal structure and evolution of lightning discharges, will be compared with the three dimensional ones measured by a French team using another interferometer. Both systems are equipped with automatic processing which will enable the structure and evolution of an electrical discharge to be displayed as it develops. Cognate observations of air motions and precipitation by three doppler radars will greatly benefit the interpretation of thunderstorm structure and lightning activity.